A Revision of Investigatons in Number, Data and Space: Focus on Algebra and Assessment

"Investigations in Number, Data and Space" is an elementary school mathematics curriculum which reflects research on, and best practices in, learning and teaching mathematics in grades K-5. NSF funded the development of the original curriculum, starting in 1990. This revision of the "Investigations" curriculum will focus on the integration of algebraic thinking throughout the curriculum, the development of comprehensive assessment tools, and the strengthening of the number and operations strand. This work is informed by feedback from the field, as well as by recent recommendations for improving the mathematics curriculum. These revisions will be carried out and tested in an established network of school system partners, teacher collaborators and educational leaders. In addition to revising the curriculum, the project will develop materials to support teachers as they implement the curriculum. Additional materials will be developed for parents and administrators. The summative evaluation of the project will include longitudinal student achievement data, following two groups of students for three years each. Cost sharing will include substantial contributions from the publisher, Scott Foresman, and the developer, TERC.